Third Biennial Conference of the International Association for Relativistic Dynamics

Howard University is hosting IARD 2002, the third biennial conference of the International Association of Relativistic Dynamics. The overall goal of the conference is to facilitate the understanding of problems and the acquisition and dissemination of knowledge about relativistic dynamics at all levels. This award will enable increased participation of students and postdoctoral researchers in the conference activities. Their participation in this conference provides them with unique and extensive access to the leaders in their field, exposes them to new research opportunities and techniques and helps prepare them for leadership roles in the future.